Systems of Variable Type: Foundations for Programming In the Small and In the Large

This investigation will use the variable type framework developed by Feferman to formalize programming in-the-large and to study alternatives to existing type systems, taking advantage of the rich type definition mechanisms provided by the variable type systems. The logical system will be enriched to explore its potential as a formal specification language and to accommodate even richer programming language constructs, including imperative features. This research will seek to provide new insights on the nature of types and specifications that can be used in the design of programming and specification languages and to develop tools for programming in- the-large. These insights will provide a basis for more effective use of formal methods in software design, development, and evolution.